Random Gaussian Curvatures, Image Centroids and Caustic Surfaces in Gravitational Lensing

ABSTRACT: NSF Proposal, DMS-0302812 (Petters)

This proposal presents a two part research program that
creates a synergistic interaction between mathematics and astrophysics.
Program 1 aims at developing a mathematical theory to determine the
probability distributions of Gaussian curvatures
at critical points of random time-delay functions. This research program
opens up new mathematical directions that bridge singularity theory with
probability theory (e.g., zeros of random polynomials and
limit theorems in Rayleigh-Levy statistics). In addition, Program 1 has
direct applications to understanding the nature of dark matter in galactic
halos via the flux ratio anomalies in the lensing signatures of galaxies.
Program 2 seeks to extend the classification of light curves and image
centroids of sources near caustics in thin-screen, weak-field microlensing
to the strong gravitational field of a Kerr spacetime. This involves
studying the global topology, geometry, and singular theoretic structure of
light caustic surfaces in a spacetime. Program 2 points to new mathematical
issues relating the geometry of light caustic surfaces to topological
invariants of the matter singularities of gravitational lenses. This program
may also yield tests of Einstein's General Theory of Relativity, especially as
it pertains to the massive black hole believed to lie in the nucleus of our
galaxy.

The dark matter in galactic halos and the black hole in
the center of our galaxy are two central and pressing topics in astrophysics.
These issues are directly impacted by the powerful mathematical methods of
geometric analysis because gravitational lensing is simultaneously a unique
tool for probing the nature of dark matter distributions and black holes, and
a theory that is built on geometric, analytical, and probabilistic concepts.
The dark matter study requires developing a mathematical theory that allows
one to differentiate generic dark matter lensing signatures from features that
are specific to the particular choice simple lens model used for dark matter.
The first part of the proposal deals with formulating such a mathematical
theory. This work would open up new mathematical directions that bridge the
geometric aspects of singularity theory with several areas in probability
theory (Rayleigh-Levy statistics, zeros of random polynomials, etc.). The
second part of the proposal focuses on one of the fundamental predictions of
Einstein's General Theory of Relativity, namely,the existence of black holes.
Though a black hole cannot be seen directly, its extremely strong
gravitational field warps the spacetime about the black hole causing light
rays that managed to get through the region to be bent with impressively large
angles (e.g., rays can loop around a black hole numerous times before arriving
at the observer). The probing of such extremes of gravity would be a critical
test of our understanding of the nature of space and time. The proposal
explores mathematically the lensing signatures of the strong gravitational
field due to the massive black hole generally believed to be at the center of
our galaxy. This should draw upon techniques from differential geometry and
singularity theory, and create synergies between these mathematical
topics and the physics of black holes.